CSR: Small: Privacy and Security for MapReduce Clouds with PASMAC

This research targets the design and evaluation of protocols for
secure, privacy-preserving data analysis in an untrusted
cloud. Therewith, the user can store and query data in the cloud,
preserving privacy and integrity of outsourced data and queries. The
PIs specifically address a real-world cloud framework: Google's
prominent MapReduce paradigm.

Traditional solutions for single server setups and related work on,
e.g., fully homomorphic encryption, are computationally too heavy and
uneconomical and offset cloud advantages. The PIs' rationale is to
design new protocols tailored to the specifics of the MapReduce
computing paradigm. The PIs' methodology is twofold. First, the PIs
design new protocols that allow the cloud user to specify data
analysis queries for typical operations such as searching, pattern
matching or counting. For this, the PIs extend privacy-preserving
techniques, e.g., private information retrieval or order preserving
encryption. Second, the PIs design protocols guaranteeing genuineness
of data retrieved from the cloud. Using cryptographic accumulators,
users can verify whether data has not been tampered with. Besides
design, the PIs also implement a prototype that is usable in a
realistic setting with MapReduce.

The outcome of this project enables privacy-preserving operations and
secure data storage in a widely-used cloud computing framework, thus
remove one major adoption obstacle, and make cloud computing available
for a larger community.